National Information Service for Earthquake Engineering

This award provides renewed support for the National Information Service for Earthquake Engineering (NISEE). The purpose of NISEE is to disseminate information on earthquake engineering and allied fields to practicing engineers and related professionals, academic researchers, government agencies and the general public. The NISEE program at the Earthquake Engineering Research Center, University of California, Berkeley, includes the EERC Library, Earthquake Engineering Abstracts and Computer Applications. During the last two year grant cycle, the EERC Library acquisitions and public service transactions continued to increase. Earthquake Engineering Abstracts completed the conversion of its software to an in-house publication system. The NISEE database was made available to users. Computer Applications continued its distribution of microcomputer and mainframe computer software at the same level as recent years. The program provides a central collection point for reports on NSF and other sponsored research as well as other developments in earthquake engineering. NISEE will continue to take advantage of new information handling technology to increase the efficiency of current operations, to broaden the spectrum of services provided and to expand the audience served. The Abstract Journal and NISEE database will continue to expand their audience and bring the Abstract Journal to a current publication schedule. The EERC Library will begin to convert existing manual records into machine-readable form. Computer Applications will expand capabilities for software which runs on a 386 class machine. This branch of NISEE complements the activity of a second branch at the California Institute of Technology.